D-Lib Magazine: Continuing Advancement of Digital Library Research Dissemination

Proposal : IIS-0243042
Institution: Corporation for National Research Initiatives
PI: Laurence Lannom

This proposal requests continuing support for the publication of D-Lib Magazine. D-Lib is only published on the World Wide Web, and is widely considered the most influential and respected source of information on digital libraries today. It has proven to be an especially effective forum and promoter of scientific communication and dialogue across a broad spectrum of IT, disciplinary and education issues.